Rapid Survey and In Situ Measurement of Anthropogenic Contaminants in Surficial Marine Sediments (Collaborative Research)

9613698 Noakes This project will fund researchers at the Center for Applied Isotope Studies (CAIS) to improve the state of the art for instrumentation and techniques used to assess the environmental impacts of sediment-associated contaminants. This research will enable rapid, large-scale surveys of contaminated distributions to be conducted in conjunction with detailed process studies of contaminant pore water- sediment partitioning and seafloor-bottom water exchange. The result will be a rapid and cost-effective approach to investigate relationships between the fate, distribution, and bioavailability of sediment-associated contaminants that can be performed over geographic regions having a broad areal extent. The first phase of the research is to create an experimental model for laboratory and field testing and evaluation. During the second year of the project, the experimental systems will be field tested and evaluated for performance at a site in Charleston Harbor, South Carolina. ***